University of Central Florida Research Site of the Industry/University Cooperative Research Center (I/UCRC) in E-Design

This award joins the University of Central Florida as a full university research site, with the Industry/University Cooperative Research Center for e-Design: IT Enabled Design and Realization of Engineered Products and Systems at the University of Pittsburgh and University of Massachusetts at Amherst. The joint research efforts of faculty will form a coalition that seeks to realize the following objectives: 1) inclusion of a multidisciplinary viewpoint needed to ensure the development of a new paradigm of excellence in the design of engineered products and/or systems; 2) realization of conceptual modeling tools aimed at reducing design cycle time and ensuring maximum achievement of design goals for human use; 3) realization of an environment for economic and supply chain optimization design; and 4) establishment of a critical mass of expertise focused on the development of an e-design modeling and simulation software platform and virtual prototyping tools.